CISE/EHR/ENG/MPS CRLT: A Center for Collaborative Research in Learning Technologies - Planning Proposal

9616500 Ewing, R. Stiller, Peter Texas A&M University Collaborative Research On Learning Technologies: A Center for Collaborative Research in Learning Technologies - Planning Proposal Texas A&M University has been awarded $50,000 for a period of 08 months to provide support for planning to develop a proposal for a Center for Collaborative Research on Learning Technologies (CRLT) at Texas A&M. The Center would serve as a major focal point for on-going research projects, and would provide leadership and administrative support for large scale collaborative projects involving interdisciplinary teams of researchers and participants from a multiplicity of locations and backgrounds. The Center would also provide for the dissemination of research and newly developed technologies, and serve as a link to the telecommunications and other related hi-tech industries, working actively with private industry to commercialize successful technologies for their introduction into the classroom of the 21st century.